Ambassadors for America's Energy Future: Educating the Public About Energy

Abstract:

This planning project by the National Academy of Sciences is the first step toward their establishment of a new initiative on helping the public become more knowledgeable about and engaged with the science of energy and energy choices. The Energy Ambassador program would eventually work around the country with several local civic/business/community leaders to provide them with a solid foundation for understanding the science of energy-related issues and provide them with a solid foundation for understanding the science of energy-related issues and developing possible strategies in their communities for public engagement and decision-making. The planning work is prelude to a pilot study and then to a major roll-out if all indicators suggest that would be successful. The planning work will convene scienctists, policy makers, educators, and media to develop the details for the pilot study, including indentifying three cities where the pilot study could take place and the science ambassadors for these. The activity will be in collaboration with the NAS's Committee on Learning Science in Informal Environments and the staff of the Board of Science Education.